MRI: Web Host Access Tools

EIA-0079770
Cassel, Lillian N.
Villanova University

MRI: Web Host Access Tools

This is a cooperative effort among computing faculty at Villanova University and the College of New Jersey and the objective is the acquisition of web host access tools. The combined research activities address important questions in artificial intelligence, information gathering, human-computer interface and networking all in the context of a common problem. The problem that joins these topics is assisting a user retrieving and using information obtained from the World Wide Web. The actives involve an integration of research and education with an explicit goal to introduce students to a significant research project while advancing the state of the art in enhanced web resource access.